Collaborative Research: AF: Small: On the Complexity of Semidefinite and Polynomial Optimization through the Lens of Real Algebraic Geometry

Semidefinite and polynomial optimization (SDO and PO) are topics of great theoretical and
practical interest, with numerous applications in theoretical computer science, control theory,
quantum information sciences, and statistics. The steady advances in efficient interior-point
methods (IPMs) lends credence to the impactful role of SDO, as an emerging computational
tool, in PO and quantum computing. The complexity of SDO and PO is well-known in the
bit model of computation: there is no polynomial-time algorithm yet to find an exact optimal
solution of these classes of optimization problems. However, even for an approximate solution,
there are pathological instances that IPMs or relaxation hierarchies for PO fail to solve.
In view of this challenge, the need to investigate the complexity through a broader spectrum
of complexity measures is obvious. Such a novel approach allows for a finer classification of
instances with high complexity. This project pursues the above goal by addressing several
key questions on the complexity of SDO and PO, through the lens of real algebraic geometry.
The results of this project will enhance understanding of the complexity in SDO and PO
and have the potential to impact other disciplines, including quantum information sciences,
where the emerging area of quantum IPMs with their unique advantages offer unprecedented
intellectual challenges. Due to the multidisciplinary nature of this project, the investigators will
train graduate students and organize meetings by inviting experts as well as young researchers
for fruitful interaction amongst the optimization and real algebraic geometry communities.

The first part of the project focuses on quantitative and algorithmic questions about the complexity
of SDO from the perspective of the central path. Since IPMs operate in a neighborhood
of the central path, their efficiency is influenced by the analytic and algebro-geometric properties
of the central path. The investigators explore several complexity measures based on the
degree, worst-case convergence rate, and geometric curvature of the central path for regular
and near to ill-posed instances. By means of these complexity measures, in particular, one
can quantitatively justify the complexity of IPMs on instances whose special structures exhibit
failure of the strict complementarity condition. The second part of the project investigates the
complexity of PO through error bounds and the topology of the feasible set. Unlike IPMs, the
moment/sum of squares approach only deals with a sequence of objective values (rather than
solutions), which may not adequately reflect the progress toward the optimal set. As a result,
the current complexity bounds from the moment/sum of squares approach are purely algebraic
with no reliance on the topology/geometry of the feasible set. The investigators will explore
topology based complexity measures which allow for the inclusion of the Betti numbers of the
feasible set and thus enhance PO solvers with more precise complexity estimates. That will
rigorously explain why iterative algorithms are more likely to stop at a local optima of a PO
problem, as the number of connected components or the holes in the feasible set increases.